Magnet School Strengthening Grant

Mountain Empire Community College Young Scholars Program will strengthen its current summer enrichment program in math and science for high school juniors and seniors. This program is part of the Virginia Governor's School Program, which offers students enrichment activities beyond those available in the regular school programs. Referred to locally as the Magnet School, this four week program features hands-on scientific and mathematical investigation, including overnight field trips to science-related facilities and locations. Real-world environmental and ecological problems are studied and innovative teaching methods are utilized. Students are selected from the seventeen high schools in the College's service area. High School teachers also participate in the summer program. They are exposed to non-traditional instructional methodologies, update their knowledge in the fields of science and mathematics and contribute to improved communications and cooperation between the high schools and the College.